Abstract Homotopy Theory

DMS-0203936
Charles W. Rezk

The goal of this project is to apply homotopy theoretic
methods to algebraic problems. There are two threads of
ideas involved here. One is the description of homotopy
theory as a kind of topologically enriched category theory,
as has been developed by Dwyer-Kan and many others. Another
thread is in the theory of commutative ring spectra (a homotopy theoretic generalization of commutative ring theory), and
in particular the development of a topological version of
the algebraic de Rham complex of a ring.

Homotopy theory is a branch of topology; it arose as the
study of certain invariant properties of spaces, namely those
left unchanged by continuous deformations. It is a surprising
fact that there are deep analogies between the methods of the
homotopy theory of spaces (which would seem to be geometric and topological) and those of several branches of algebra (such as homological algebra, sheaf theory, and category theory). For
example, there is a close analogy between the way we can
describe an algebraic object (such as a group or ring) by
giving generators and the relations between them, and the
way we can describe a topological space by giving polyhedra
and the way they are attached together to give the space.
The goal of this project is to develop certain homotopy
theoretic methods in the context of ring theory and of
category theory, and to allow them to be applied to
traditional algebraic problems.